Advanced Instrumentation for Visualization & Evaluation of Cold Air Diffusers

This project will assess the feasibility of using liquid crystals and infrared imaging in a novel application. The project will develop and apply advanced instrumentation for the determination of air temperature and flow fields from HVAC diffusers used in cold air distribution systems.